Spectroscopy and Chemistry of Jet-Cooled Free Radicals

This grant in the Organic and Macromolecular Chemistry Program supports research of Dr. G. Barney Ellison, University of Colorado, to study the infrared absorption spectroscopy of jet-cooled organic radicals. The reactions of radicals with ions will also be studied in a fast flow reactor. Radicals are unstable reactive intermediates which are of paramount importance in many combustion processes and high temperature plasmas; spectroscopic probes are needed to monitor the fate of these metastable species. The enterprise is to develop an experiment which will enable preparation of intense radical beams via a free jet expansion. Radicals such as methyl, allyl, and cyanomethyl will be prepared by a variety of photochemical and thermal sources. Sources will be monitored by a photoionization mass spectrometer. Radical densities on the order of 1 mTorr will be prepared and these reactive species will be cooled by the jet to rotational temperatures of about 20 K. These radicals will be investigated by infrared absorption spectroscopy with an FTIR. Selected for study are the family of methyl radicals: methyl, fluoromethyl, difluoromethyl, trifluoromethyl, and cyanomethyl. In all cases, it is planned to establish the molecular geometries and vibrational frequencies. The allyl radical is of similar interest since it is the simplest conjugated hydrocarbon. Clean, characterized radical beams will be used to study the reactions between negative ions, such as hydroxide ion or methoxide ion, and hydrocarbon radicals such as allyl or benzyl. Dr. Ellison hopes to establish the gas phase acidity of allyl to contrast with propene or toluene. Separate experiments will use these radical sources to study the scattering of methyl radicals off clean gold or graphite surfaces. This will establish the sticking coefficients of these radicals as well as the rate of molecular deposition.